Workshop in Linear Analysis and Probability

Abstract
Johnson/Pisier

This award is to continue support for the ongoing Workshop in Linear Analysis and Probability at Texas A&M University. The workshop brings together senior and junior researchers and advanced graduate students in several areas of analysis in order to broaden the education of the younger participants and to promote interaction among investigators in various fields. The Workshop also sponsors three day regional conferences and Concentration Weeks.